U.S.-Brazil Cooperative Science Program: Electron ScatteringInvestigations

This award from the U.S.-Brazil Cooperative Science Program supports collaborative research in nuclear physics to be conducted Drs. T. William Donnelly and Ernest J. Moniz of the Massachusetts Institute of Technology and Drs. Mahir Hussein and Helio Diaz of the University of Sao Paulo, Brazil. The focus of the research will be to carry out collaborative theoretical research nuclear physics, specifically calculations of the nuclear response to high energy electron scattering. The output of such calculations would greatly further the experimental programs at several high priority laboratories in the U.S. and Brazil. The project will provide calculations of the nuclear response to high energy electron scattering. Electromagnetic nuclear physics is one of the top priority activities in nuclear science and the investigators are amongst the leaders worldwide in performing such calculations. The investigators will explore the use of overlapping resonances and non- resonant background terms in understanding giant resonance electro-excitation. They will also probe the microscopic basis for the resonance picture. In addition, they will investigate the role of two-body interactions when imbedded in a nuclear medium, focussing on the repulsive core part of the nucleon-nucleon interaction and how it introduces short range correlations and modifies the electron scattering response functions. The calculations will enhance the experimental programs at CEBAF and Bates (high priority laboratories in the U.S.) and for the lower energy facilities under construction in Brazil.